Investigations in Elementary Particle Physics

Three faculty, two research associates and four graduate students will continue their research in elementary particle physics. The university based effort uses facilities at Fermilab, one experiment at the Tevatron Collider (E740 at the D0 interaction region) and the second an experiment with neutrinos, in the final stage of completion. The Collider experiment is a large collaborative effort to study proton- antiproton collisions at the highest energies available at accelerators. The group has had responsibility for major subsystems of the detector, the fast trigger system, the implementation of the cosmic ray shield and the overall management of the test-beam program at Fermilab. The collider experiment will explore the high energy frontier of particle physics, an unknown arena at the limit of applicability of the current theory of particle physics.